Development of Hybrid (FRP & Steel) Reinforcement

This project will investigate the feasibility of combining a steel center core encased with various types of like material such as glass, aramids, carbon, etc, to form a hybrid reinforcement to resist corrosion when used as reinforcement in concrete structures.